Multibeam Data Synthesis for RIDGE

A synthesis of multibeam data from the Juan de Fuce ridge, Mid-Atlantic rise, and digital database accessible over Internet. A series of interactive tools engaged via a graphical user interface will allow the user to query, browse, and display as imagery files or sets of files within the database. Files can be transferred from the database to the user's local site electronically. Services for map generation, map printing, gridding, file conversion and file copying to other media will be offered.